Analysis of the Community Modelling Effort North Atlantic Simulation

Analysis of output for a computer simulation of the North Atlantic Ocean will be performed. Circulation of the equatorial system, a T-S volumetric census, and the suitability of boundary conditions at the northern and southern ends will be investigated. The WOCE Community Effort eddy-resolving numerical model provides the information for analysis.